Ectropic Design: Intelligent Collaboration Spaces for Open-Source Software

Open-Source software has proven to be an exciting and productive
alternative to traditional, process-driven software development. But
Open Source has an inherent limitation--it has been most successful in
those situations where a strong individual has served as a unifying
force. Ectropic software design is proposed as a way of sustaining
conceptual integrity in the absence of such a unifying force;
ectrospaces are proposed as a collaboration technology to support
ectropic design. The term ectropic is intended to describe software
systems that maintain or increase their structuredness, as opposed to
the more typical, entropic, case in which the structure and conceptual
integrity of a system degrade as it evolves. Besides precisely
defining the ectropic design process and building a prototype
ectrospace, this project studies the power and practicality of
ectropic software. It also investigates it in the setting of a
sophomore-level, object-oriented development class. The class will
undertake an Open-Source development effort using ectropic design and
supported by an ectrospace. The resulting software and documentation
will be distributed in Open Source form to the Internet community.